Sex Differences and Estrous Cycle Changes in Hippocampal Information Processing: Relating Learning to Hippocampal Single Unit Network Representation

IBN-9809958 PI= Markus, E. Sex differences and estrous cycle changes in hippocampal information processing: Relating learning to hippocampal single unit network representation The long-term objective of the research is understanding the neuronal mechanisms that underlie learning and memory processes; examining the relationship between behavioral ability and the activity of brain cells. The focus of the work is the hippocampus, a brain structure important for establishing new memories and for navigation. There is evidence of sex differences in the hippocampus, and it has also been shown that there are changes in this brain region over the course of the female rat's natural estrous cycle. Male and female rats will be tested on a series of memory and navigation tasks. Solving some of the tasks depends of having an intact hippocampus while the rest are hippocampus independent (this has been shown by others in experiments where the hippocampus is removed). Sex differences in hippocampal related abilities will be examined; in addition, the female rat's estrous cycle will be monitored to investigate whether sex differences found are related to this natural cycle. Some of the animals will have electrodes implanted into their hippocampus. This will enable us to monitor the activity of individual cells in the hippocampus as the animal performs the different tasks. The distinctive aspect of the research lies in combining the behavioral analysis with the monitoring of the neuronal activity. This research will enhance our understanding of how memories are formed and provide a basis for the development of therapeutic intervention in cases of memory dysfunction.